A High Performance Connection to the Internet and vBNS for the University of Notre Dame

This award is made under the high performance connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for the installation and operation of a DS-3 ATM connection to the MREN where they can gain access to the Very High Performance Backbone Network Service (vBNS). This link will be upgraded to a OC-3c sometime in the summer of 1988. Applications include: - Advanced Photon Source project - High Energy Physics - Astrophysics - Grand Challange computational fluid dynamics - scalable libraries - meta-computing research - high speed image and video processing - coastal waterways simulation Collaborating with: - Air Force Rome Laboratories - Argonne National Laboratory - Army Waterways Experiment Station - Brookhaven National Laboratory - Cornell Theory Center - Fermilab - Illinois Institute of Technology - Lawrence Berkeley Laboratory - Lawrence Livermore National Laboratory - Maui High Performance Computing Center - Northwestern University - Old Dominion University - Purdue University - Stanford Linear Accelerator Center - Texas Institute for Computational and Applied Mathematics - University of Colorado - University of Florida - University of Washington The award provides partial support of the project for two years.